Conspicuousness and Concealment: The Visual Ecology of Signaling and Camouflage

Project Summary: Conspicuousness and Concealment: The Visual Ecology of
Signaling and Camouflage

All visual tasks that animals perform take place in natural scenes.
Consequently, the visual systems of animals are adapted for efficient
(often nearly optimal) analysis of the scenes they view in natural
circumstances. Animals are rarely concerned with general scene
properties, however. Rather, most objects of visual interest are other
animals or plant food items such as fruits or flowers. Sometimes the
visual object is decorated to become a strong signal. Other times, it
may conceal itself using patterns that are confused with its natural
background - it is camouflaged. Systems of signaling and camouflage
must contend with both vision of other animals and properties of the
background. Furthermore, neither the background nor the organism has a
constant appearance because of continuous variations in the patterns of
illumination falling upon them. These changing conditions strongly
influence the visual appearances of scenes and signals.

This project considers the interrelationships among illuminants, scenes,
signals, and animal vision. Research will concentrate on marine systems
that offer excellent preliminary understanding of vision, color, and
behavioral context: coral reef fishes, mantis shrimps, and cuttlefish.
The primary goals are to learn how colors (i.e. spectral reflectances)
and patterns of animals are adapted for enhanced conspicuousness or
concealment, and how visual systems of animals are specialized to detect
signals and to break camouflage. The power of this approach is that it
compares a diverse selection of animals, all of which must form and
recognize biological signals in shallow, clear marine waters. The
research will be a pioneering effort to learn how systems of vision,
signaling, and camouflage operate in extremely colorful (or well
camouflaged) marine species in the specific contexts of their natural
illuminants and backgrounds. The proposed research will contribute
significantly to the fields of sensory biology, visual ecology, and
animal behavior. It will similarly be of special interest to engineers
and scientists working in remote sensing, machine vision, and artificial
systems of object detection (including camouflaged objects). It will
contribute to the training of graduate students and enhance the research
experiences of undergraduates working in the P.I.s laboratory, including
women and minority students. (who are already involved with similar
research in this laboratory). Last - and far from least - the project
holds promise for stimulating scientific interest in the general public
and all those interested in animal vision, color, and crypsis.